Presidential Faculty Fellow

9350192 Shieber This is the second year award of a three-year Presidential Faculty Fellowship to research issues leading to increased efficiency in communicating with computers through natural language and other symbolic media, concentrating on the problems of robustness, fluency, and modularity. This includes teaching plans on new approaches to the presentation of programming languages and compiler design.